Conditional evolution and real-time feedback in open quantum systems

This research project focuses on experimental and theoretical research on continuous observation and feedback control of single-atom dynamics in cavity QED. The focus will be on a newly discovered class of supercritical Hopf bifurcations that are predicted both by semi-classical and quantum models for the atom-cavity dynamics. The plan is to investigate quantum-classical correspondence between these models via experiments with real-time filtering and feedback, and to use single-atom bifurcations as a setting to study the interaction of quantum fluctuations with semi-classical dynamical instabilities. An experimental apparatus to perform cavity QED with a Fabry-Perot optical resonator and atoms guided by a magnetic micro-structure will be constructed. The broader impact involves education of graduate students as well as efforts in diversity and outreach.